RAPID: Social Media Data Collection and Online Activities

Organizations are increasingly shaped by online activities. Data from across nations can provide insights on the dynamics of how online activities are impacting organizations worldwide. These dynamics can provide insights on many factors including relationships among real-world institutions, socioeconomic conditions, and education level. This project increases the access that scholars have to data on individual perceptions of these dynamics and how such perceptions are shaped online.

The project team will present survey participants with text from a hypothetical online poster to understand how the text shapes the online activities of the participants. The project team will distribute a survey in different contexts around the world to understand how responses vary with context. The team will also develop training in the form of a webinar series for graduate students in the social sciences and cybersecurity to encourage multi-disciplinary research on online activity data.